Recruitment, Support, and Career Placement Program for Mathematics and Computer Science Students

This S-STEM project focuses on students interested in or majoring in mathematics or computer science. On an annual basis, 32 incentive scholarships of $500 each for prospective mathematics and computer science majors and 30 support scholarships averaging $4,000 each for declared majors are offered. Approximately $136,000 is allocated to scholarships annually. The goals of the S-STEM project are to (a) recruit and retain academically talented, financially needy mathematics and computer science majors, and (b) increase the number of mathematics and computer science graduates who enter the workforce in these fields. Academically talented students with financial need are actively recruited for the program and selected through a structured application process. Support services include tutoring, mentoring, career placement assistance, and interactions with businesses and professional individuals. The program establishes a sense of community that instills personal confidence and encourages success.